Acquisition of State-of-the-Art Alpha Counting Equipment

This proposal requests 50% support for the acquisition of alpha counting equipment to be utilized in geochemical, glaciological, hydrological and environmental engineering research programs at the University of New Hampshire. The equipment will allow precise low level measurements of the natural and artificial radioactive isotopes of plutonium, uranium, radium, polonium, actinium, thorium, protactinium and lead for dating and tracer studies in natural water, ice and sediments. The departments of earth sciences and civil engineering are providing laboratory space and the university will provide the remaining 50% of the equipment purchase costs.